A Non-Invasive Sensor Technique for Process Control in Plasma Processing Reactors

This research activity is designed to develop a non-invasive technique for the monitoring of plasma reactors. The basis for this approach is the phenomenon of Laser Induced Fluorescence (LIF) which can be used to conduct three-dimensional mapping of the plasma properties. This will be analyzed to provide quantitative information on constituent species, detection of appearance or disappearance of species and contaminants, and end point detection. The technique will also develop innovative methods to perform rapid scanning with a high degree of accuracy and sensitivity. The technique can be used to provide reliable monitoring to enable process control of the dry plasma process. The dry plasma process is widely used for the manufacturing of semi-conductor devices. The ability to implement closed loop control will have significant impact on the yield and efficiency of the process with large benefits to a vital industry segment.